Fifth International Fungal Spore Conference Sponsored by theUniversity of Georgia to be held at the Unicoi Conference Center, in Helen, Georgia August 17-21, 1991

The Fifth International Fungal Spore Conference, sponsored by the University of Georgia Center for Plant Cellular and Molecular Biology, will be held at the Unicoi Conference Center, Helen, Georgia on August 17-21, 1991. Approximately 150 scientists from around the world are expected to attend. The meeting consists of six plenary sessions covering all aspects of fungal spore formation, dispersal, and germination and informal workshops and discussions. The invited speakers are known for the high quality and significance of their research dealing with fungal sporulation. Funds are requested to help defray the travel costs of invited speakers.